CSR---PDOS: A Relativistic Programming Model for Scalable Multi-Core Architectures

Multi-core technology promises an inexorable increase in hardware-level
parallelism and leaves software developers with two challenges: (1) How
to utilize large numbers of processors in order to achieve higher performance,
and (2) How to verify the correctness of scalable concurrent programs. This
project explores these challenges through the development of a new programming
model called "relativistic programming".

Relativistic programming targets shared-memory architectures, but rather than
present a consistent global view of memory it allows each processor to have
its own relativistic view of memory, containing fresher or staler values than
other views. By imposing minimal constraints on each processor's execution,
relativistic programming is intended to achieve the scalability characteristics
of message passing while embracing the shared memory architecture of modern
multi-core hardware. Relativistic programming primitives enable fine-grain
control over the visibility of events in the execution of a concurrent program
and negate the need to switch among two different programming models for local
and remote parts of a computation.

This research involves formally defining the relativistic programming
model, exploring its support for formal verification, static and run-time
analysis, and developing tools and techniques to facilitate and promote its
wide-spread use in operating system kernel development.